GeoTraverse: A Geologic Framework for USArray - workshop

The purpose of the proposed GeoTraverse workshop is to explore a geologically-based scheme
on how to design and coordinate high-resolution, coast-to-coast coverage of the
conterminous United States.
The primary motivation of a GeoTraverse is the great need for systematic integration of
geologic data into the EarthScope initiative. Additionally, we assert that broad
involvement by the geologic community and recognition by the general public is essential
for the ultimate success of EarthScope. Among the EarthScope products, an over-arching
synthesis of all regional EarthScope studies, such as provided by one or more geologic
transects, is critical to define and understand the structure and evolution of the North
American continent. The difficulty with the current deployment of USArray is that the
arrangement offers insufficient spatial resolution of the crust, which is essential to
geologic analysis. Therefore, the workshop will primarily focus on geologically relevant
and reasonable use of the USArray flexible seismic array, utilizing both passive- and
active-source seismology.
The combination of geophysical and geologic data envisioned under GeoTraverse is
scientifically integrative and synoptic, and would optimize public interest and outreach.
A group of 50 or more active scientists will convene at a central location in the US in
November 2005 or January 2006. A series of introductory presentations will offer
background and technical constraints. Subsequent break-out groups will explore regional
and topical targets, followed by plenary discussion toward a GeoTraverse proposal.
There will be two lead-conveners who are responsible for organizational matters and a
steering group of scientists who represents regions and topics in US continental geology.
The steering group will select participants from applications and by invitation.